Kinematics and Dynamics of Basic Mechanical Components

This project focuses on understanding the dynamics of three fundamental mechanism elements -- silent and roller chains drives, ball-type shaft couplings, and band and tape drives. The dynamic and vibratory characteristics of the chain are modeled with load amplification and chain wear being studied. Ball-type couplings are used as connections between non-parallel intersecting shafts. The basic joint mechanics are investigated in this study. This research is concerned with the kinematic and dynamic analysis of band drives.